Dynamics and Spectroscopy of Molecular Excited States

This grant, in Experimental Physical Chemistry, supports research of Dr. Robert Weisman, who has developed the technique of transient coherent Raman spectroscopy to directly study excited state processes in organic molecules. These experiments enable important photochemical and photophysical processes to be directly observed. Understanding such processes is important in several branches of pure and applied chemistry. In the planned research the transient CARS technique will be used to take "snapshots" of excited sample molecules' vibrational spectra as their properties change on the nanosecond time scale. Weisman will trace the nonradiative relaxation pathways of polyatomic molecules such as pyridine and carbon disulfide and examine the structures of their excited states. He will also study the vibrational spectra of selected gas phase radicals such as cyclopropyl and of "hot" (vibrationally excited) molecules.